Spectra of Arithmetic Manifolds & L-Functions

9401571 Sarnak This award supports Prof. Peter Sarnak's study of the fine structure of the spectrum of the Laplacian for arithmetic quotients of symmetric spaces. These problems turn out to be related to a number of central problems in the analytic theory of numbers. They have also received attention from Physicists working in Quantum Chaos. This is research in the field of number theory. Number theory is basically the study of whole numbers. The research done under this award studies properties of the whole numbers by encoding them into the functions of calculus. Number theory is among the oldest fields of mathematics, yet it has always played an important role in choosing directions for the rest of the subject. Within the last half century, the study of whole numbers has become doubly important as the theory has been used to develop new algorithms for computer science and to construct new error correcting codes for electronics.